Development of Elementary, Middle and Secondary School Instructional Materials in Genetics & Biotechnology

This Wisconsin Genetics Education Program has been responsible for the development of genetics activities which have been developed by classroom teachers, K-12. These activities have taken place over the past six years and consequently many activities will be generated and/or revised to make them suitable for the appropriate grade level. These materials will be integrated into existing science texts. The materials address genetics in several contexts. Some integrate content with arts or language curricula; many address issues of genetics in social and personal contexts. They are suited for all levels of students and all ability levels, K-12. In addition to the development of genetics modules, workshops illustrating project use will be held at national professional conferences in order to share these and other activities with pre-college teachers.